Nonlinear Feedback Design and Task Planning for Intelligent Cooperating Robot Systems

The proposed work combines task-level motion planning with nonlinear hybrid position-force feedback control to linearize and decouple the complicated system dynamics of a robot. The approach combines mathematical rigor and experimental validation, and treats the problem from a system point of view. The task level planning obviates the need for joint-space task decomposition. The results should be generalizable to a broad array of control problems in manufacturing.